Our Dynamic Earth

9614704 Appleman The Cranbrook Institute of Science will develop "Our Dynamic Earth," a 7000 sq. ft. exhibit that will provide visitors with insight and understanding of the interrelationships of plate tectonics and climate to prehistoric life. This will make up the earth sciences component in their renovated and expanded exhibit area. This section will include four related areas: 1) Plate Tectonics, 2) The Earth's Amazing Climate System, 3) The Earth Evolving Biosphere, and 4) An Ecological Whodunit. Each area will be anchored by an "icon" that will serve as a guiding image for that exhibit and will be supported by a layered interpretation using objects from the collection, workstations with selected databases, simulated scientific investigations, and hot-links to related Internet Sites. Numerous interactives will highlight the use of scientific research tools and methods. A broad menu of complementary educational activities will accompany the exhibit including take-home activities for families; teacher enhancement sessions and materials for students, and experiences for pre- service teachers. Cranbrook is working with the Detroit Public Schools in their science reform effort supported by an NSF Urban Systemic Initiative and with the Michigan Department of Education through its NSF Statewide Systemic Initiative. The exhibit elements will support and reinforce the systemic reform efforts and will be aligned with the science standards.